Japan JSPS Program: Particle Non-Conservation in IntegrableSystems

9504984 Williams This award supports a 12-month Japan Society for the Promotion of Science Postdoctoral Fellowship for Dr. Eric Williams of the Mathematics Department, University of Minnesota Minneapolis, Minnesota. This fellowship opportunity will enable Dr. Williams to begin a collaborative research effort with Professor Minoru Takahashi of the Institute of Solid State Physics (ISSP) at the University of Tokyo. The researchers propose to study integrable many body quantum mechanical systems, in particular those for which the individual particle numbers are not conserved. The 12-month visit by Dr. Williams will help him to establish a personal and professional link with a leading researcher in Japan. As a postdoctoral fellow, Dr. Williams will have the opportunity to interact with researchers at the University of Tokyo, as well as contributing to the understanding of integrable systems and physics. Therefore, this proposal fulfills the objectives of the Program in its exchange and transfer of scientific knowledge through an international collaboration. ***